Research Experiences For Undergraduates

The School of Electrical Engineering & Computer Science of Polytechnic University is continuing its undergraduate research program in the areas of electrophysics and information systems. Students are recruited from a variety of other schools, including primarily undergraduate institutions. The research environment is enriched by additional undergraduate students funded from other sources. Each participant has regular meetings with an individual faculty mentor to plan work and review progress throughout the eleven week program. Project topics in electrophysics include microwave-plasma interaction, propagation of microwaves inside buildings and in urban radio channels, ultra-short pulsed laser, computational electrophysics, and thin film devices. Information systems include image communication, multivariable feedback control, wireless information networks, robotics, adaptive filtering, target recognition in infrared images, and digital signal processing. A monetary prize is awarded to the best project.